PostDoctoral Research Fellowship

This award is made as part of the FY 2015 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Robin S. Walters is "Sato-Bernstein Polynomials, D-Modules, Monodromy of Yangians and Hecke Algebras." The host institution for the fellowship is Northeastern University, and the sponsoring scientist is Dr. Valerio Toledano Laredo.